MRI: Acquisition of a Glove Box and FT-IR and UV-VIS Spectrometers for Enhanced Undergraduate Chemistry Research

With support from the Major Research Instrumentation (MRI) Program, the Department of Chemistry at Lycoming College will acquire a glove box, Fourier-transform infrared spectrometer (FTIR) and an ultraviolet-visible (UV-VIS) spectrophotometer. Research will focus on the following studies: a) synthetic chemistry utilizing intramolecular hydroacylation; b) production of mixed metal selenides; and c) the production of carbon-based radicals. Students at this undergraduate institution will be heavily involved in these research projects.

A glove box is a critical piece of equipment when handling air-sensitive chemicals. FTIR and UV-VIS spectrometers are mainstays of the modern chemical laboratory, allowing rapid identification of unknown compounds. These fundamental studies will have an impact in a variety of areas including synthetic inorganic and organic chemistry.